Spectroscopy and Dynamics of Anions

In this award, funded by the Experimental Physical Chemistry Program of the Chemistry Division, Prof. William C. Lineberger of the University of Colorado and his postodoctoral and graduate student researchers will use a variety of spectroscopic methods to obtain new insights into the structure and reactivity of chemical intermediates and the dynamics of anion solvation. The research will draw heavily on collaborations with theorists, bringing together state-of-the-art theory and experiment.

Besides the broad impact of the research on several general areas of science, Prof. Lineberger will continue to train young researchers in cutting-edge science, as well as work on curricular reform of the undergraduate chemistry program at University of Colorado - this in collaboration with Prof. Carl Wieman and Prof. Veronica Bierbaum.